Acquisition of a Mass Spectrometer System for the Analysis of C,H,N,O,S Stable Isotopes in Biological, Environmental, Geochemical Systems

0116234
Dias
This Major Research Instrumentation award to Old Dominion University will provide support for acquisition of a stable isotope ratio mass spectrometer and related instrumentation for researchers in three departments. It is expected that the new instrumentation and the interdepartmental research and training that it offers will foster inter- and multi-disciplinary approaches to a broad range of problems in marine chemistry, biology and related environmental sciences. Old Dominion University will contribute cost-sharing of more than 47% of the cost of this project from non-federal funds.
***